Sixth International Conference on the Sodium Pump: September5-9, 1990; Woods Hole, MA

An open International Conference on the Sodium Pump is planned for September 5-9, 1990, at the Marine Biological Laboratory, Woods Hole, MA. It is the sixth in a series of triennial meetings, the third held in the U.S., and the first sponsored by the Society of General Physiologists. The pace of research on the sodium pump is accelerating. The conference will offer a timely opportunity for experts in these not (yet) overlapping fields to compare notes in an intensive five-day discussion, and to disseminate their conclusions to an audience much wider than the participants or the Society's membership, in particular, to colleagues working on other members of the E1-E2 transport ATPase family. Five major themes will be covered: (1) Molecular Biology of the Sodium Pump; (2) Structural Studies both empirical and theoretical; (3) Conformational Changes and Ion Occlusion; (4) Detailed steady-state and presteady-state ("fast") kinetics of the various pump modes; and (5) Electrogenicity and voltage dependence with emphasis on identifying the voltage sensitive step(s). Twenty-seven, including thirteen non-U.S., speakers have been invited to present comprehensive critical reviews of their own work and that of others, and to write a chapter for the proceedings.